Oceanographic Instrumentation

9610071 Pfeiffer This award to University of Delaware will provide a new CTD (conductivity, temperature, depth) instrument for use on R/V Cape Henlopen, a 120-foot research vessel operated as part of the University National Oceanographic Laboratory System research fleet. The shared-use instrumentation supported here will assist marine scientists conduct studies in coastal and continental shelf regions along the US East Coast in 1997 and in future years. ***